Customizable Head Related Transfer Function

When a acoustic wave propagates from a sound source to the ear drum, wavelength-dependent diffraction by the torso, head and outer ears or pinnae produce major changes in its spectrum. The nature of this transformation depends on the location of the sound source relative to the head, and is completely specified by the so-called head-related transfer function. Because the head- related transfer function completely characterizes the acoustic information available for sound localization, it has become central to any scientific study of spatial hearing. The character of the head-related transfer function varies from person to person. These inter-subject variations are often quite significant, and individualized head-related transfer functions are needed to obtain a faithful perception of spatial location. It is hypothesized that a physically-based model of the head- related transfer function requires a small number of free parameters, and that these parameters can be adapted or customized to individual listeners by statistical matching against experimentally measured head-related transfer functions, and by correlation with anthropometric measurements. This effort will develop and validate head-related transfer function models using a combination of the physical and mathematical approaches. Extensive psychological experiments will be performed to validate the adequacy of the resulting filters. This research has significance for the development of novel man-machine interfaces and interactive systems, for three-dimensional auditory displays as well as for some biomedical applications.